Properties of Rock Discontinuities

Rock masses are the host media for engineering ventures of major economic and defense significance. The performance of a rock mass under engineering conditions is usually dominated by the discontinuous nature of the medium. However, the techniques of describing the topography of discontinuities or joints, which strongly influence their properties, and of experimentally measuring their mechanical properties, are still rather elementary. The research identifies an approach for determining joint stiffness and strength properties under a testing condition of controlled normal stiffness, which is completely analogous to the state of loading which a joint experiences in situ. A stiffness-controlled system is proposed for joint testing which can yield joint stiffness and strength properties in one-directional direct shear and after load reversal. The ultimate purpose of research is to relate joint mechanical properties to rock material properties and joint topography. The fractual dimension of the joint surface is suggested as a parameter which may avoid current problems in describing the rough state of a joint surface.